Engineering Creativity Award: Microwave Plasma Induced Oxidation of Semiconductor

The objective of the research is to develop the means to obtain micro-scale thermal/energy measurements during the CVD oxidation processes in order to establish a quantum-based transport model. This model is used over a broad spectrum of conditions and materials. The model is applied to process related problems with fine architecture VHSIC type devices. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.